Mathematical Sciences: Global Analysis and Applications

The very general problem of solving non-linear systems of equations efficiently has many important applications, in virtually every area of science and engineering. Steven Smale and his students and collaborators will use methods of geometry, especially Newton's method and path following, to study their relevance to these problems, with the aim of eventually leading to substantial reduction in costs of computation.